The Transition to a Quark-Gluon Description of the Nucleon: A Renewal

This project supports the research and education efforts of the
Hampton University (HU) nuclear experimental group. This group was
established 15 years ago to address a critical national need in a
science where African-Americans are severely under-represented.
According to American Institute of Physics statistics, HU now
graduates over half of the doctoral degrees in physics awarded to
African-Americans annually.

The HU group has spearheaded research in low-energy quark-hadron
duality, and, more generally, the transition between the Baryon-Meson
and the Quark-Gluon description of nucleons, including effects of the
nuclear medium on these nucleons, and the investigation of low-energy
fragmentation processes. In another major effort, the group has
successfully developed a first-ever effective free neutron target for
the BONUS experiment at Jefferson Lab (JLab). During the upcoming
years, the group will focus on (i) the analysis of JLab experiments
still in queue or just executed; (ii) global analysis of JLab
structure function program results, including proton, deuteron, and
nuclear targets, with an emphasis on the large x region; (iii)
preparation for the MINER A project, a neutrino physics effort to
precisely map the response of nuclei to the axial couplings; and (iv)
gearing up for preparations for JLab 12 GeV science and construction
projects.